RUI: Finite Capacity Queuing Models in Manufacturing and Production Systems

9313283 Chakravarthy Finite capacity queuing systems arise naturally in many practical situations, notably in communications, manufacturing and production systems. These queuing systems have very few analytical results (most of which are obtained under very stringent conditions such as exponential assumptions) and have been getting a lot of attention in recent years due to their profound applications in practice. In this research using a dynamic group service rule that has a number of potential application, several finite capacity queuing models are investigated. Using matrix analytic methods, these models will be analyzed. Efficient and stable algorithms for computing various system performance measures will be developed. These algorithms are to be used interactively to solve non-traditional but significant design problems. An attempt is made to narrow the gap between theoreticians and practitioners in operations research and production system areas which will be beneficial to industry.